Two-dimensional Cell Motility Model

Many animal cells have the ability to crawl or glide over
long distance on a surface. For decades, scientists have been
trying to understand the mechanics of such movement. This is
important because cell movement is fundamental to many important
biological processes such as the formation and development of an
embryo, wound healing, and proper functioning of the immune
system. The investigator and colleagues develop a mathematical
model of cell movement based on well established physical and
biological principles. With such a model, testable prediction
about any particular aspect of cell movement that is being
modeled can be made. One can also examine the contribution of
each sub-process of cell movement by altering the appropriate
parameters in the model, something which is not possible to do by
experiments. A good mathematical model can help cell biologists
better understand the principles of cell movement which will in
turn help doctors and people in the medical field improve their
treatment of certain types of diseases.

Existing models of cell motility are either one-dimensional,
meaning that they only focus on a vertical strip in the middle of
the cell, or they are spatially discrete models. A
one-dimensional model is inadequate because the cell can only
have length but no shape. It is also known that certain protein
filaments, which are cross-linked to form the cytoskeleton of the
cell that is responsible for cell movement, are oriented
differently at different parts of the cell. A spatially discrete
model is difficult to analyze mathematically because of the large
number of equations involved. The model the investigator and his
colleagues develop is a two-dimensional continuum model that
requires more sophisticated analytical and computational
techniques. Methods of study involve biological experiments to
determine the movement of cell boundary, development of the
mathematical model using mechanics principles, analytical and
numerical studies of the resulting equations, and comparisons and
reconciliations of the analytical, numerical and experimental
results.